Signal Processing Research of Multi-Element Recording Heads

This multi-disciplinary exploratory research work involves sensor design and signal processing in magnetic recording systems. It involves the use of multi-sensor head structures (which is different from multi-track structures) along a track, signal processing techniques applied to these multi-sensor signals to increase the signal to noise ratio and hence the clarity of magnetic recording and characterization/analysis of track edge noise. Also, the multi-sensor data are used to implement a high resolution, continuously monitored track-edge following servo system for very high density application. This would free up the 5%-30% of track width that is being used to store information for present embedded servoing methods and hence increase the recording density.